A Regional Conference Series in Mathematical String Theory

This award, under the direction of Professor Ronen Plesser of Duke University, supports a series of regional conferences in mathematical string theory.

String theory is the leading contender to unify general relativity and quantum field theory, two of the most significant developments of twentieth-century physics. This award provides support for a series of bi-annual regional meetings in North Carolina and Virginia which focus on the mathematical aspects of this subject. Research in this area not only advances our understanding of fundamental physics but has also proven to have extremely fruitful interactions with mathematics. As a result, research in this area advances the national interest by promoting the progress of science. These meetings fill a critical need by regularly bringing together isolated research groups to collaborate and hear research talks on various aspects of mathematical string theory. These meetings also provide essential training for students and postdocs, both by exposing them to a wide array of ideas as well as giving them a forum in which to give talks, thereby substantially aiding both training and research efforts.